MRI: Development of the MIT QMIP Network

EIA-9871329 Lauffenburger, Douglas A. MIT MRI: Development of the MIT QMIP Network This request pertains to an innovative initiative that brings together investigators from HST, CBE and the School of Engineering to further support an MIT wide microscopy network. Three phases are involved: Phase I - The Light, fluorescent, confocal, atomic-force, and transmission electron microscopes will be connected to a central server/router. Acquired images will be transported via high-speed ATM connections and downloaded to large capacity storage systems so that more complex, computer-intensive processing methods can be employed. Phase II - An advanced object-oriented programming environment and associated database will be established. Phase III -The network will be extended to an even wider group of investigators both on and off campus. Accessibility of the network through the Internet will provide a powerful teaching tool that can be tapped by other less-advantaged institutions with a relatively small investment.